Statistical Analysis of Longitudinal Studies and Surveys with Missing Values

----------------------------------------------------------------------- Proposal Number: DMS 9803720 PI: Roderick Little Institution: University of Michigan Project: Statisitcal Analysis of Longitudinal Studies and Surveys with Missing Values Abstract: Many empirical studies have problems with missing data, where subjects with missing values differ systematically from subjects with complete data. Discarding the incomplete cases leads to bias and loss of efficiency. Model-based statistical methods allow for efficient and valid inferences based on all the data, but require careful attention to correct modeling of the data and the missing data mechanism. This research will develop new Bayesian and maximum likelihood methods for handling incomplete data in the following problems: Longitudinal data where study subjects are measured repeatedly over time, and subjects are missing at certain times, or drop out of the study prematurely; and survey data from complex survey designs where subjects have differential probabilities of selection and nonresponse. Results from many research studies are hard to interpret because of missing data. In an opinion poll some of the randomly chosen subjects refuse to answer some of the questions, and results based on the respondents may not be representative of the population. In clinical trials some patients may drop out of the study because they cannot tolerate a particular treatment, or simply move to a different location and cannot be traced. Statistical methods for analyzing data with missing values use partial information on nonrespondents to provide more precise and more accurate answers than can be obtained by analyzing only the complete cases.